International Symposium on Electron-Molecule Collisions and Swarms

Funding is being provided for the International Symposium on Electron-Molecule Collisions and Swarms, to be held in Lincoln, Nebraska July 14-16, 2001, as a satellite to the ICPEAC. This will permit the attendance of students, junior faculty and participants from less favored regions. Since this Symposium will represent the major world gathering of workers in this field, it will represent an important educational opportunity for these participants.